A Multi-Objective Fuzzy Optimization for Radiative Fin Array Systems

ABSTRACT CTS-9312024 Chung The proposed research focuses on the development of an optimum radiative four-fin system fin array which requires a minimum fin mass for a given amount of heat rejection while occupying a minimum space in the horizontal direction. Because the minimum fin mass requirement typically results in a fairly long horizontal fin height, these two objectives are in conflict. To resolve this apparent conflict, fuzzy set theory will be utilized to meet these two requirements simultaneously. Each of the fuzzy objective functions will be used to define its own optimum solution, and then using constraints, which have been quantitatively described mathematically the entire system will be optimized. Situations where both equal and unequal preference on the two objective functions are used will be investigated. The numerical results will be compared with those of conventionally designed two-fin systems to determine the success of the optimization technique.